Planning For Global Change Education In Alaska

9550122 Campbell This project provides partial funds for early work in Alaska on global change education. The planning year is primarily devoted to research of the issues, technologies and materials that are appropriate; building awareness throughout the state through presentations and articles; and forging partnerships. At the completion of the project, the state will be ready to implement a comprehensive global education plan through models, technology teacher training awareness campaigns, and ongoing partnerships. Cost sharing is 232% and includes funds from the state, other Federal agencies, corporations and other sources.